Conference: Evolution Equations on Singular Spaces; Luminy, France; April 25-29, 2016

This award provides funding for US participation in the conference "Evolution Equations on Singular Spaces," to be held at the Centre Internationale de Recontres Mathematiques in Luminy, France from April 25 to 29, 2016.

The conference focuses on recent developments in Analysis, especially in the field of partial differential equations. A number of distinguished mathematicians have agreed to attend and speak at this conference. The award gives early career researchers, researchers who are members of underrepresented groups, researchers not funded by NSF a chance to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:

http://scientific-events.weebly.com/1396.html